CISE Research Infrastructure: A Laboratory for Scalable Systems

9500991 Myers This award provides support for the research infrastructure necessary to investigate the viability of building scalable systems from commodity components. Hardware components will include workstations and ATM switches. Research topics to be conducted include the design of an operating systems that scales with processor performance; and the design, implementation and experimentation of five different scalable systems: DNA Assembly Server, Scalable Storage Server, Cluster-C* applied to remote sensing, a general computing environment based on an efficient fine-grain parallelism on multiple processors, and a parallel simulator.